Engineering Creativity Award: Maximum Likelihood Applied to Spectrum Estimation

The research deals with work in spectrum estimation for problems involving finite samples from stationary Gaussian stochastic processes. Emphasis is on the general method for achieving estimators with small bias and low variance. Theoretical work is in three areas: 1) Implementation via lattice filters, 2) Maximum-entropy extension, 3) Complex exponentials in noise. Investigations also involve multi-signal array processing, beamforming, and delay-doppler radar imaging along with mapping of these signal processing algorithms to parallel architectures. This project is one supported under the Creativity Awards for Undergraduate Engineering Students.